Southwest Regional Workshop on New Directions in Dynamical Systems

DMS-9523804 Ercolani/Wojtkowski/Kennedy/Wehr This award will support a workshop in Dynamical Systems to be held at the University of Arizona in March, 1996. Dynamical Systems is an important area that has seen significant recent developments, both as a subject unto itself as well as providing a unifying principle for nonlinear science.